Supporting Compiled Communication on Commodity Networks

This project investigates the compiled communication technique on
commodity networks. In compiled communication, high performance
communication is achieved by using the compiler to analyze the communication
requirement of a program and to manage network resources statically to
support the communications. As a result, runtime communication overheads,
such as buffer management, are reduced and/or amortized over a number of
communications, and the communication performance is improved. Compiled
communication is more powerful than traditional communication optimization
techniques in that it performs communication optimizations in both the
compiler and the hardware/operating system/runtime system. The outcome
of the proposed research is an extension of the MPI library that supports
the compiled communication model, a SUIF based restructure compiler that
can generate communication code using the compiled communication model,
an experimental demonstration of how much performance improvement can be
achieved by using the compiled communication model, and a clear
identification of the advantages and limitations of the compiled communication
model.